Mathematical Sciences: Low-dimensional topology and geometry

Matic will study a theory of moduli spaces of anti-self-dual connections for pairs, and a Yang-Mills theory for parabolic stable bundles in dimensions four and two. She will also work on Floer homology for rational homology spheres. This project also includes partial support for the annual Georgia Topology Conference. Matic's research combines theoretical physics with topology and differential geometry in the following way. The physics concerns topological quantum field theories. These lead to invariants of the underlying spaces on which they are defined. Although differential geometric constructions are involved as intermediaries, in the end quantities are derived which depend only on the topological and not the geometric character of the spaces.